Upgrade of a 300 MHz NMR Spectrometer for Teaching and Research

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Texas in Arlington will acquire a 300 MHz NMR Spectrometer. This equipment will enable researchers to carry out research on synthetic organic, inorganic, physical organic and polymer chemistry. These include the study of a) novel enantiomerically pure metal-organic dendrimers; b) metal complexes of new fluorinated poly(pyrazolyl)borate ligands; c) polymeric materials with enhanced electrical conductivity, superconductivity or electro- and photoluminescent properties; d) the study of ISAMs with nonlinear optical properties; e) the total synthesis of bioactive alkaloids and synthetic methods development; and f) molecular recognition of gases.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have a particular impact in materials science and the development of new polymers.